Presidential Young Investigator Award: Investigation of Material Instability With the Bifurcation Theory

The objective of this research is to combine constitutive equations, bifurcation theory and finite element methods to improve our understanding of the collapse mechanisms and unstable phenomena within soils and rocks. A better understanding of the catastrophes and instabilities resulting from nonlinear material behavior is of fundamental importance not only to Geotechnical Engineering, but also to Earthquake Engineering and Structural Geology. The transition between continuous and discrete modeling of soil and rock masses will be analyzed with the theory of bifurcation. The emergence and growth of discontinuities within initially continuous soil and/or rock masses will be studied by combining nonlinear description of material behavior (including stress-dilatancy and strain-softening) and some finite element techniques similar to the one developed in Structural Mechanics to analyze the problems encountered in the buckling of shells. The description of strain localization is a fundamental and necessary step to understand not only the emergence and growth of failure surfaces within earth slopes or beneath structures but also the formation of faults in sedimentary deposits caused by tectonic forces.